Ship Technicians

Owen 9401161 The University of Delaware (UD) requests renewed funding for shipboard technician activities associated with the research vessel CAPE HENLOPEN, a 120-foot vessel. The CAPE HENLOPEN is owned and operated by the University. In calendar year 1994, the CAPE HENLOPEN will support a total of 131 days of NSF-funded research, primarily in the Chesapeake Bay and coastal waters of the northeastern U.S. UD technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore and assisting with scientific operations necessary before and after cruises.